Nebraska Economics Fellows Institute for Secondary School Teachers

The project would bring together 35 outstanding teachers from Nebraska identifying them as 'Fellows'. These teachers would, over the course of the next three years, pursue a masters degree in economics. The courses for the program are all regular catalog courses. Special sections of each of the courses will have entry restricted to the institute Fellows. Each of the Fellows will also be required to do a research project. The selection of the Fellows will be based on regional considerations as well as population in order to have an appropriate number of people associated with each of the several Economic Educational Centers strategically located throughout the state. Twenty five of the Fellows will ultimately be named as Center Associates where they will be required to set up other workshops and assist in other in service projects for the teachers of economics in their region. Most, if not all, of the teachers of economics in Nebraska are expected to be impacted by this institute through the secondary effects. The cost share is 22.4% of the amount being requested from the Foundation.